Polymer Surfaces for Sustained Cell Growth: Development and Study of Molecular Interactions

The objective of this research is to examine the influence of different polymeric substrates on cell behavior, cell morphology, organization of cellular structural proteins, and gene expression. It will also assist understanding cell/polymer interactions to develop novel polymeric systems for sustained cell growth. The sustained growth and function of mammalian cells on solid substrates depends on the physiochemical nature of the substrate. Although the molecular basis of this phenomenon is not well understood, it is of major importance in the development of large-scale cell culture and artificial internal organs. The approach is interdisciplinary, involving the integration of engineering methods with biochemical and molecular biology techniques. Unique polymer surfaces, including bioerodable surfaces, will be created by custom synthesis and by modification with supercritical fluid solvents; these surface will be completely characterized in terms of surface chemistry, roughness, and surface energy. Fibroblasts and hepatocytes will be cultured on a variety of polymer surfaces. Changes in cell behavior, cytoskeletal organization, and expression of specific genes in response to these surfaces will be determined by quantitative computer-assisted microscopy and biochemical analysis. By controlling and examining molecular changes at several different levels -- from the polymer surface to cellular protein -- changes in substrate properties with the precise effect on cell function will be correlated. Finally, novel substrates will then provide a local release of biologically important factors without the addition of media serum supplements,